DMTCP: Checkpoint-Restart on the Desktop

Title: DMTCP: Checkpoint-Restart on the Desktop
PI: Gene Cooperman
NSF Proposal Number: 0960978

ABSTRACT:

This work builds upon the existing open source, user-space DMTCP package
for transparent, distributed checkpointing. Three goals will be accomplished:
(i) checkpoint-restart of long-running computations on the desktop;
(ii) save-restore of interactive software packages; and (iii) a universal
reversible debugger. The first two goals will allow software development
teams to add to their package a reliable "save workspace" feature --- with
no requirement for a kernel module or other privileged operations.
The third goal is to enhance any debugger with reversibility (e.g. a
back-step command), and with a reverse expression watchpoint command to
move backwards from a software error to the original software fault.

INTELLECTUAL MERIT:
While checkpointing has existed for over 20 years, earlier packages
were difficult to maintain. The unprivileged, user-space design of
DMTCP has a five-year track record. It is ideal for integration into
other software, where any end-user requirement for installation of a
kernel module or other administrative privilege is incompatible with
widespread distribution. Finally, DMTCP is the first package able to
directly checkpoint a gdb session (the gdb process and its target process)
-- a key feature for the envisioned new type of reversible debugger.

BROADER IMPACT:
Checkpointing and process migration have long been of interest for science
and engineering, but too often suffered from software fragility or special
requirements. The DMTCP approach removes these obstacles. Further,
the wider use of ``time-traveling (reversible) debuggers'' will greatly
accelerate software development due to the greater ease of finding bugs.
A NIST report estimates the cost of software bugs to the economy at
$59.5 billion per year. Finally, the excitement factor of checkpoint-restart
on the desktop helps attract and motivate students toward the learning
of sometimes arcane systems issues in this critical technology.